Representation Theory and Automorphic Forms

Abstract
Savin

This award supports research in several areas of representation theory and modular forms with applications to number theory. In particular, we propose to determine the Howe correspondence for generic square-integrable representations of classical p-adic groups. This work is based
on the recent classification of generic square-integrable representations of classical p-adic groups due to Goran Muic.

The theory of modular forms was born more then a century ago, as powerful techniques of complex analysis were introduced to attack classical problems in number theory. It has remained a vibrant mathematical subject throughout the 20th century with applications in physics, and more recently in computer science, coding theory in particular.